Computational Investigations of Quantum Field Theories (Postdoctoral Research Associateship in Computational Science and Engineering)

Rebbi 9405031 We propose here a research program involving the application of the most advanced computational techniques to studies of theoretical physics. The focus will be of three major areas; numerical methods for particle physics simulations, QCD simulations, and phase separation and surface tension at low temperature.